The Mechanics of Complex Fluids: Drop Breakup and Shear Induced Diffusion Effects in NonNewtonian Fluids

CTS-9523238 Leal This experimental study is aimed at understanding the fluid physics which control the microstructural features of suspensions containing either solid particles or drops in a viscoelastic or non-Newtonian suspended liquid. This class of particle-liquid suspensions is a major source of new materials in the polymer processing industry. Different experimental techniques will be used to study suspensions of non-colloidal solid particles in a viscoelastic suspending fluid and emulsions of viqcous or viscoelastic drops. Optical techniques and two complimentary flow devices will be used to explore two critical features encountered in processing flows. The class of suspensions under consideration have the tendency to develop strongly non-uniform particle concentration distributions, and, in some cases the particles spontaneously organize into long chains aligned in the flow direction. A computer- controlled four-roll mill will be adapted to study deformation and breakup for Newtonian and viscoelastic drops in emulsions.